1992 Midwest Regional Developmental Biology Conference at the University of Dayton, May 13-16, 1992, Dayton, Ohio

The 32nd Midwest Regional Developmental Biology Conference, to be held May 13-16, at the University of Dayton will provide an opportunity for established investigators, graduate students and postdoctoral students in the midwest to exchange ideas, both informally and formally, by presenting their most recent findings on the platform, and by means of posters. This will provide an opportunity for graduate and postdoctoral students to present their own work, often for the first time and to also observe examples of excellence provided by presentations made by veteran investigators, To ensure the latter, there will be an invited keynote speaker for all platform presentation sessions. The extensive interaction among students, faculty and invited speakers will promote the exchange of new information and an enthusiasm for teaching and research in developmental biology.